Support for US Participation in the 10th International Symposium on Cationic Polymerizations and Related Ionic Processes, Balatonfured, Hungary, August 26 - 29, 1991

This grant provides partial support for the attendance of seven American speakers at the IUPAC-sponsored International Symposium on Cationic Polymerization to be held at Belatonfured, Hungary, on 26- 29 August 1991.